Construction of Hybrid Viral/Synthetic Gene Delivery Nanovectors

0602636
Pack

This proposal describes a strategy to develop and evaluate hybrid gene delivery carriers by combining bald retrovirus-like particles and cationic lipids or polymers (polycations). These novel vectors will be held together by electrostatic forces. The rationale is to combine the transfection efficacy of viral vectors and the safety of polymeric carriers, and to minimize the lack of cell specificity of viral vectors. The investigator proposes to develop a hybrid system can will target cells specifically, and efficiently transfect them.
The investigator proposes three objectives: 1) Evaluation of the effects of polycations (ratio and type) on the transfection efficacy of the hybrid complex, 2) Development of hybrid complexes conjugated to cell-specific ligands, and evaluation of specific cell targeting, and 3) Investigation of the intracellular mechanisms (fate) of the novel hybrid complexes.